Investigations on High Brightness Gaseous Field Ion Sources

The PI has developed an H(2)+ gaseous field ion source that produces a highly columnated ion beam of high angular current density and low energy spread. The PI proposes to extend the gaseous field ion source to several other ion species using different gases. The characteristics will be used to determine the required conditions of temperture, gas pressure, fields, etc. for gaseous sources using helium, the rare gases, 0(2), N(2), and some gaseous hydride, e.g. silane (SiH(4)), phosphine (PH(3)), Arsine (AsH(3)) and diborane (B(2)H(6)) will be investigated.